Understanding and Reducing the Gender Gap in Math and Science: Cognitive, Social, and Neural Mechanisms in Identity Threat

The proposed project is focused on the gender gap in the STEM disciplines through research on the impact of stereotype threat, which is viewed as an important factor in female underrepresentation in mathematics and science. Stereotype threat for women in math and science takes the form of a fear that they could be judged in light of negative stereotypes. The research rigorously tests the emerging view that identity threat impairs
learning and performance by reducing mental capacity, specifically working memory capacity, cluttering individuals’ minds with negative task-irrelevant thoughts (e.g., worry) and inducing them to excessively monitor task performance. Affirmation is hypothesized to reduce task-irrelevant thoughts and/or excessive performance monitoring, thereby protecting working memory capacity from the effects of identity threat.

Using multiple levels of analysis, the research is designed to: a) test whether stereotype threat diminishes the math and science performance of undergraduate women by reducing working memory capacity; b) determine the efficacy of a self-affirmation intervention for lessening the negative impact of stereotype threat on women's math performance and clarify the underlying cognitive mechanism (i.e., depleted working memory capacity ) that allegedly mediates its impact; and c) examine whether a self-affirmation intervention can improve the learning of new scientific concepts in addition to enhancing the solving of math and science problems. A significant strength of this proposal is the proposed testing of working memory capacity in a more rigorous and comprehensive manner than previously done, by examining multiple mediating mechanisms with a diverse array of converging measures (e.g., reaction times, event-related potentials, heart rates.

The proposed research will yield rich data on underlying mechanisms that should provide a foundation for conducting larger-scale longitudinal interventions in actual STEM classrooms. The research also has the potential to advance knowledge and understanding across several fields and create transformative concepts

This project has the potential to significantly reduce the gender gap in STEM fields at the undergraduate and graduate levels through significantly reducing underrepresentation in these disciplines and increasing performance on standardized tests of math and science. At the same time, the proposed activities offer a unique blend of training opportunities to undergraduate trainees, graduate and post-grad students. The interdisciplinary team includes leading researchers with expertise in cognitive psychology, social neuroscience, and science education. Thus the project also can serve as a proof of concept that an interdisciplinary approach can reveal the mechanisms underlying one of the most significant psychological barriers to women's success in the STEM, and that a psychological intervention targeting identity threat can improve women's STEM learning and performance.